The Topology of Open Manifolds with Nonnegative Ricci Curvature

Abstract for NSF Proposal DMS - 0102279
The Topology of Open Manifolds with Nonnegative Ricci Curvature
Christina Sormani

Dr. Sormani proposes to study the topology of complete manifolds with
nonnegative Ricci curvature and their limit spaces. In particular she
plans to investigate various approaches to Milnor's conjecture that
the fundamental group of an open manifold with nonnegative Ricci
curvature is finitely generated. She also plans to study the higher
dimensional homology of these spaces. Techniques which will be
employed involve Gromov-Hausdorff limits, the almost rigidity theory
of Cheeger-Colding, and Busemann functions. In particular, the
properness of Busemann functions on these manifolds will be
investigated. It should be noted that there are direct applications
of this project to the theory of topological censorship in general
relativity. The condition of nonnegative Ricci curvature on
space-time is called the null energy condition and it arises in the
Einstein equation.

Roughly speaking, Dr. Sormani proposes to study the existence and
prevalence of holes in a space which has no boundary, extends to
infinity and has a condition imposed upon the way in which it can
bend. The universe we live in is such a space. Simpler examples are
cylinders (i.e. tubes) and paraboloids (i.e. bowls). The cylinder has
a hole but the paraboloid does not. The spaces studied in this
project are of arbitrary dimension and so the holes come in various
dimensions as well. The universe is one such higher dimensional space
and its holes, which may or may not exist, are often called wormholes.
By furthering our understanding of this geometric problem, it is hoped
that we will further our understanding of the universe.